ITR: Information-Theoretic Limits in Data Storage Systems

Data storage systems represent one of the pillars supporting
the modern information age. Advances in computing and communication
technologies, and the networks that incorporate them, have increased
the demand for high capacity data storage devices in applications
ranging from biological research (e.g., the visualization and analysis
of massive multimedia data-sets) to consumer electronics (e.g., the
storage of high-resolution image, audio, and video data in digital cameras).

The research addresses
analytic and numerical methods for determining the information-theoretic
limits on achievable storage densities and data transfer rates in
recording channels. It also develops and evaluates modulation, coding,
and signal processing techniques that can approach or achieve these limits.

The research considers both one-dimensional channel models applicable
to "track-oriented" storage devices, such as disks and tapes, as well as
higher-dimensional models relevant to exploratory page-oriented and
volumetric storage technologies, such as holographic recording and
thermomechanical recording based upon atomic force microscopy.

More specifically, new information-theoretic and algorithmic methods are
being used to study lower and upper bounds on the capacity of recording
channels, using analytical and empirically-based models for both longitudinal
and perpendicular recording systems. Bounds on the information rates of
channels in two and higher dimensions are also being developed.

In order to achieve performance approaching the theoretical limits, new
signal processing and coding methods are required. In the area
of constrained modulation coding, the project is exploring the analysis
and design of one-dimensional constrained codes that more efficiently
combine the functions of modulation and error-correction. The nascent
theory of constrained coding in two and higher dimensions is also being
investigated, with a focus on fundamental problems, such as representation
of multi-dimensional constrained systems, determination of constraint
capacity, and efficient encoding and decoding algorithms.

Channel coding techniques based upon concatenation architectures,
graphical code models, and iterative decoding have been shown to effectively
achieve capacity on certain memoryless channels. The channel coding
component of this project addresses theoretical and algorithmic problems
associated with the application of these new and powerful coding concepts
to data storage channels. In particular, the research considers the design
and performance analysis of turbo-like and low-density parity-check codes
for channels with intersymbol-interference, the trade-offs between latency
and complexity in message-passing decoder architectures, and new approaches
to combining coding, equalization, and detection that can more closely
approach the recording channel capacity. The project also addresses
fundamental problems of channel coding and detection in two-dimensional
recording systems.